Oceanus Ocean Instrumentation - 2017

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.

Program Recommendation
The Program recommends an award of $40,399 for the purchase of the following:
Ashtech ADU800 $10,374
Network Infrastructure Upgrade $5,400
Niskin Bottle Refresh $24,625
$40,399